New Aminoisoprene-Containing Block Copolymers

This starter grant award to Iowa State University supports the research of Professor Valerie V. Sheares. Research focusses on the synthesis and characterization of new monomers, homopolymers, and block copolymers for gas membrane applications. The work examines the effect of various morphologies on the gas transport properties of a material. The utilization of living anionic polymerization and new aminoisoprene monomers yields new block copolymers whose morphology can be systematically varied. Through study of morphologically varied products, understanding is advanced of how polymer microstructure, chain motion, free volume, density, and polarity affect the solubility, diffusivity, and ultimately gas permeability properties of these new materials. Through synthesis and study of novel gas permeable membranes, the research advances understanding of the fundamental relationships between the structure of a polymeric membrane and its resulting separation properties.